A Fluorescence-Based Imaging Method to Monitor Alpha-Synuclein-Membrane Interactions Relevant to Parkinson's Disease

Proteins perform many important tasks in the body. They help build muscle, send signals between cells, transport materials, and enable neuron signaling. These interactions are needed for normal body function, and disruptions of these interactions can lead to disease. In Parkinson’s disease (PD), one important protein is alpha-synuclein (aSyn). Studies of people with PD have shown abnormal protein deposits in the brain called Lewy bodies, which contain large amounts of aSyn clusters. Normally, the aSyn helps regulate communication between neurons by binding to synaptic vesicles, which store and release neurotransmitters. In PD, however, aSyn can misfold and form toxic aggregates. Scientists believe these aggregates can spread from neuron to neuron in a chain reaction, contributing to disease progression. What remains unclear is what controls the balance between aSyn’s normal role at synaptic vesicles and its harmful accumulation into aggregates inside the cell. To address this, researchers need better ways to track aSyn in real time as it begins to form aggregates. This project will develop an imaging method to track aSyn and then apply it in living neurons grown in the laboratory and, eventually, in live animal models. The project will support training for graduate students and undergraduate researchers. A seventh-grade math learning module will be presented each year and revised based on feedback from teachers and students.

aSyn may begin to aggregate while interacting with small lipid membranes inside the cell. The interaction is not always harmful; it is part of how aSyn normally helps neurons communicate. However, binding of aSyn to these membranes can expose the hydrophobic central region of aSyn to the cytosol, allowing other aSyn proteins to attach and hence form aggregates. This project will develop a tool that can track both where aSyn binds to membranes and when it begins to aggregate. This project will use fluorescent labels to image aSyn inside living neurons and monitor changes in fluorescence lifetime that depend on local interactions. One method, Förster resonance energy transfer, will detect when aSyn is close to membrane-bound structures. A second property, self-quenching, will reveal when aSyn begins to aggregate. However, tracking aSyn inside neurons is difficult because the important details are so small, sometimes smaller than microscopes can clearly separate. Each camera pixel may contain mixed fluorescence signals from many different sources. The project will apply a mathematical model that can separate these overlapping signals. This model will then be used to extract information on aSyn-membrane interaction and aSyn aggregation. These experiments will be done in rat neurons grown in the laboratory and will use fluorescent markers attached to lipid membranes. Fluorescence lifetime imaging microscopy will allow monitoring of this process in living neurons and the collection of detailed data from individual cells. Overall, this project will develop new fluorescent imaging technologies that leverage quantum phenomena to better understand the development of Parkinson's Disease.